U.S.-Japan Cooperative Research: Consequences of G Protein Coupled Receptor Phosphorylation

9417001 Sadee This award supports a three-year cooperative research project between Dr. Wolfgang Sadee, School of Pharmacy, University of California, San Francisco and Professor Tatsuya Haga of Tokyo University. The first objective of this joint proposal is to identify those receptor domains responsible for activating the receptor kinases to initiate phosphorylation. The second objective focuses on the role of phosphorylation in protein coupling and cellular trafficking. The results are expected to reveal diverse effects of phosphorylation including desensitization of signal transduction. This proposal brings together research scientists from two countries working in the area of neuron function. Dr. Sadee and his graduate students will have the opportunity to become familiar with research techniques and practices at Tokyo University. Therefore, this proposal fulfills the objectives of the Program in its exchange and transfer of scientific knowledge through an international collaboration. ***